Collaborative Research: Mechanics of Ferroelastic Crystalline-Amorphous Nanolaminates

Many advanced materials are extremely strong but fail suddenly due to highly localized deformation, limiting their reliability in critical applications such as transportation, energy systems, and medical devices. This project seeks to address this long-standing challenge by developing composite materials with nanoscale crystalline (ordered arrangement of atoms) and amorphous (disordered arrangement of atoms) phases, which deform in distinct but mutually beneficial ways to create exceptional strength as well as vigorous resistance to catastrophic failure. By elucidating how the basic deformation mechanisms of the crystalline and amorphous phases and their interactions shape the overall mechanical behavior of the nanocomposite, the project will lay the groundwork for designing strong, mechanically stable materials that can sustain large deformations. These materials will provide improved safety, durability, and performance in a variety of demanding structural applications and contribute to enhancing the nation’s technological edge and economic competitiveness. The project will provide interdisciplinary training for students in mechanics, materials science, and computation, while promoting STEM participation through undergraduate research, outreach to K–12 students, and open dissemination of data and modeling tools.

This research investigates the deformation behavior of crystalline–amorphous nanocomposites, with focus on systems in which the crystalline phase deforms through martensitic transformation rather than dislocation motion. A predictive modeling framework will be developed by integrating a phase-field microelasticity approach for martensitic transformation in the crystalline phase with a shear transformation zone-based kinetic Monte Carlo model for plasticity in the amorphous phase. This coupled framework enables simulation of the interactions between the fundamentally different but synergistic deformation mechanisms operating in the two phases, leading to a transition from strain localization to homogeneous flow. The simulations will systematically examine the effect of internal and external length scales and phase architecture on the deformation mechanisms and macroscopic stress–strain response of the nanocomposites. Experimental efforts will focus on the synthesis of crystalline-amorphous nanolaminates using magnetron sputtering and characterization of their mechanical behavior using microscale tensile testing stages. A combination of ex-situ and in-situ transmission electron microscopy experiments will be used to calibrate, refine, and validate the modeling framework and verify the microscopic deformation mechanisms. The results will provide mechanistic insight into deformation coupling in heterogeneous materials and help establish design principles for achieving uniform distribution of plastic strains in nanocomposites.